Earthquake Likelihood

Earthquakes occur in clusters. This fact provides fundamental information on the rupture process, and the relationship between earthquakes and stress. It also provides the most useful method presently available for earthquake prediction. We plan to quantify the tendency for earthquakes to cluster by extending probabilistic models of earthquake occurrence, including stress as a variable. Short term models by Jones (1985) and Kagan and Knopoff (1987) successfully represent the immense increase and rapid decay of seismic risk following a moderate earthquake in California. Extending the relationship to larger events have been recorded in California. Thus, we would model Chinese, Japanese, and global earthquake catalogs to quantify the triggering probabilities of large events, and to understand regional variations in clustering. We would also generalize present short term and long term statistical models to include stress as a variable. By so doing we hope to integrate the long and short term models, so that quantitative assessments of earthquake risk can include tectonic setting, strain rate, location, and focal mechanism of previous earthquakes.